Compression and Interaction Algorithms for Modeling and Simulation Environments

This is a research planning grant developing modeling and simulation aigorithms to assess system performance and to recreate events so as to interpret cause- effect relationships. The research planning activities focus on investigating the potential for developing accurate, general purpose modeling techniques that include compressing multiple experiments (variations of effects on the model) while allowing internal observation to expose the perturbations that caused the outcome. The grant resources are being used to contact other researchers involved in related efforts; and to investigate issures involved in expanding existing concurrent algorithms to areas beyond digital logic modeling and experimentation.